U.S.-Japan Seminar: Advances in Clustering Phenomena in Nuclear and Mesoscopic Systems/December 1995/Honolulu, Hawaii

9417513 Betts This award supports the participation of eight U.S. scientists in a U.S.-Japan seminar on Clustering Phenomena in Nuclear and Mesoscopic Systems, to be held at the East-West Conference Center, Honolulu from December 14-16, 1995. The co-organizers are Dr. Russell Betts of the University of Illinois and Dr. Yasuhisa Abe of Kyoto University. The seminar will explore recent advances in cluster phenomena in nuclei and their connection to clustering in a more general sense. The current state of comparison between theory and experiment will be covered in detail and the theoretical connection between multi-center shell models and the deformed, single-center shell model will be examined. The relationship between the physics of clustering in nuclear systems to more general aspects of cluster and molecular physics will be discussed to develop a wider understanding of their common features. The seminar will foster the type of contact between Japanese and U.S. scientists that can be expected to have significant influence on the future course of the field. The proposed participants and observers have been selected for their past contributions and current activity in the field and the meeting can be expected to produce concrete plans for future cooperation and exchange. Therefore, this proposal fulfills the objectives of the Program in its exchange and transfer of scientific knowledge through an international collaboration. ***